Function of the Olive-Cerebellar System

Dystonia, the lack of muscle control with loss of muscle strength indicates a neural deficit. The question is where in the brain is the deficit? A useful model for studying dystonia is a genetic mutant rat ,the dt rat. The disorder in this mutant does not appear until the second week after birth and its neuronal morphology appears to be normal. To get a handle on the deficit the investigator has used harmaline a drug known to cause tremor inthe second week after birth and to act specifically on a neural circuit in the brainstem, the IO-Cerebellar circuit. Dt rats do not respond to haramline even during the first weeks of life. This to be used as a clue for investigating the physiological deficit in the dt rat. Harmaline will be administered in infant rats and the whole circuit tested to see if one or all synaptic linkages in the IO pathway are the source of the dystonia. The novel idea of using harmaline which has been well characterized,provides a pharmacological instrument for analysing a specific neural system involved in motor movement.